Collaborative Research: Genetic Structure of a Longleaf Pine Population

Hamrick and Platt propose to integrate a detailed ecological analysis of an old growth stand of longleaf pine (Pinus palustris) with an equally detailed description of its genetic structure. Starch gel electrophoresis will be used to identify several enzyme genes which can be used as genetic markers in the study of this population. Once the arrangement of genetic variation has been described, Hamrick and Platt will use these genetic markers to study those population parameters that interact to produce the genetic patterns observed. By applying an analytical technique commonly referred to as paternity exclusion analysis, they will measure pollen and seed movement within six localized areas. They will also use genetic markers to assist in the identification of the parents of seedlings and samplings. This information will be used to determine whether there is a genetic component to mortality and survival. Upon the successful completion of their research, Hamrick and Platt will produce a detailed description of the factors which interact to shape the genetic and ecological composition of the population. This research has several applied aspects. Studies of gene movement by pollen and seeds will provide insights into the size of an effective breeding unit. This information will be valuable for the establishment of ecological preserves. Second, data obtained from this natural old-growth stand can be compared to similar data taken from second growth stands which have been managed in different ways. This will allow foresters to understand how their management practices impact the genetic composition of longleaf pine stands.